Discovery Corps Senior Fellowship: Development of Marine and Seawater Pollution Database Across Continents

Omowunmi Sadik will partner with Nigerian scientists to develop new methods for lower cost electrochemical analysis of marine pollutants in coastal Africa. The Nigerian Institute for Oceanography and Marine Research and the University of Lagos will partner with the State University of New York at Binghamton to create a marine pollution database for metals, chlorinated organics, nitrates, phosphates and silicates. Students from the US and Nigeria will work together on the research project, providing a model of global engagement and training.

This award is cofunded by the Division of Chemistry, the Office of International Science and Engineering, and the Office of Multidisciplinary Activities. The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with a service-oriented project. The Discovery Corps Program supports both Postdoctoral Fellows and Senior Fellows.